Conference: NSF Student Travel Support for the 38th Annual AAAI Conference on Artificial Intelligence (AAAI-2024)

Engaging in the Association for the Advancement of Artificial Intelligence (AAAI) conference offers significant advantages across diverse AI domains. The AAAI-2024 conference is a pivotal hub for disseminating groundbreaking research and fostering intellectual exchange in artificial intelligence (AI). This premier event will showcase various technical presentations, workshops, panels, and invited talks covering diverse AI domains like machine learning, natural language processing, computer vision, robotics, and cognitive science. It is an exceptional opportunity for students and aspiring AI professionals. The sought-after travel award support aims to enable awardees’ attendance at AAAI-24, aligning with the conference’s primary goal of advancing AI by nurturing emerging talent. AAAI attendance provides invaluable networking opportunities, fostering collaborations among researchers, industry professionals, and educators.

NSF travel awards contribute to supporting students in exploring promising career prospects within the rapidly evolving field of AI. The convergence of cutting-edge research, professional growth, and networking prospects highlights the importance of the AAAI-2024 conference in molding the future of students who attend, backing their aspirations as burgeoning talents in the field. This collaborative synergy, particularly beneficial for student participants and recipients of NSF travel awards, nurtures groundbreaking advancements while facilitating career growth and visibility. Exposure to the latest trends and discussions at AAAI enhances knowledge, contributing to the development of educational curricula and ensuring students receive cutting-edge AI education. The conference’s emphasis on ethical considerations empowers attendees, including NSF travel awardees, to contribute to responsible AI development, societal impacts, and policy-making.